Study of d-wave Superconductivity

9531720 Maki This is a renewed grant to a PI with more than thirty years of distinguished accomplishments in superconductivity and other phenomena involving symmetry breaking in condensed matter physics. The present grant will study the d-wave superconductivity. A number of phenomena in the novel superconductors e.g. High Tc cuprates, heavy fermions and even some of the organic superconductors are currently believed to derive from Cooper pairs in a finite angular momentum (mostly l=2) ground state. This grant also includes a study of the vortex state of a d-wave superconductor, including a detailed examination of the density of states of quasiparticles and the anisotropies that may be observable. %%% Many of the new discoveries in superconductivity seem to indicate a new type of superconductivity. In this new form, the superconductors are anisotropic and sometimes have a trace amount of resistance (dissipation). This grant is a program of research in the properties of the new form of superconductivity with an attempt to identify the critical experiments that can conclusively determine the role of the new form. ***